Engineering Our World

PROPOSAL NO.: 0230702
PRINCIPAL INVESTIGATOR: Skokan, Catherine
INSTITUTION NAME: Colorado School of Mines
TITLE: Engineering Our World
NSF RECEIVED DATE: 06/04/2002

Abstract

Engineering Our World

The purpose of this proposal, Engineering Our World. is to plan and pilot a program
for improving teacher knowledge and student understanding of the concepts of various
engineering disciplines and how these relate to their current science and mathematics curriculum.
The program will be designed to both engage and educate middle school students through the use
of hands-on, inquiry-based experiments in a mathematically rich environment. One unusual
feature of this program is the inclusion of teacher workshops and monthly follow-up classroom
visits. Another feature is development of a course for pre-service teachers. The existence of this
new course will increase the impact of this project in years to come.

The focus of the summer teacher workshops will be threefold: 1) to improve the middle
school teachers' backgrounds of engineering disciplines and their relevance to physical science
and associated mathematical concepts in their current curriculum, 2) to introduce the teachers to
techniques for integrating content and learning standards (including content literacy) into the
curriculum, and 3) to provide teachers with instruction concerning how to use inexpensive
materials to provide hands-on learning experiences in their classroom. . The purpose of the
follow-up classroom visits will be to assist the teachers in implementing the hands-on engineering
experiments in their classrooms and to respond to teachers' questions concerning science and
engineering concepts. In other words, members of the CSM faculty team will become a valuable
classroom resource for both students and teachers alike.

In parallel with this effort, a program for pre-service teachers will be developed. The
University of Colorado at Colorado Springs will pilot a one-semester course for pre-service
teachers covering the .Fundamentals of Engineering.. The pre-service teachers will use
materials developed through this project during classroom visits with in-service teachers and
apply these materials during their student teaching experiences at the middle school level. This
proposal is intended to develop/adapt an appropriate set of course material for the teacher
workshops and in-class lessons, and to test and evaluate the materials in urban and suburban
classrooms. The joint effort of addressing both in-service and pre-service teachers will provide a
continuous stream of knowledgeable instructors that can use engineering principals to illustrate
the practical applications of science and mathematics to middle school students.